International Research Needs Assessment

0646107
Kulinowski

This proposal will develop a sound, science-based document that assesses current scientific understanding of nanomaterial hazards for different classes of nanomaterials and identifies critical research needs and timeframes when results are needed by industry, governments, academia and the public. This work will set the stage for future efforts to develop standard protocols for assessing the environmental and health impacts of nanomaterials.